Superconductivity and Nonequilibrium Transport in MesoscopicMetals

w:\awards\awards96\*.doc 9801841 Birge This experimental research project is concerned with coherent electronic behavior in mesoscopic metal samples. It is focused on two topics. First is the study of nonequilibrium transport using massive reservoirs to cool the conduction electrons and tunnel junctions to probe their non-equilibrium distribution function. The second topic novel behavior associated with the proximity effect in hybrid samples with both normal and superconducting metals. The work in one aspect is concerned with the fundamental nature of the electronic Fermi lquid in disordered metals. This research program is interdisciplinary in nature and has typically involved several undergraduate and graduate students in its activities. These involvements are beneficial in the preparation of students for further study and for careers in industry, government laboratories or academia. %%% This experimental research project is concerned with the wave- like nature of electrons in extremely small samples of metal. The size of the samples of interest is on the scale of micro-meters, or roughly the same size scale as active elements in some modern computer chips. The electric charge carrying current in such small samples move in ways governed by quantum mechanics. These motions are different than the motions of familiar objects like tennis balls, and the differences are important to further advance the performance of computer chips and other microelectronic devices. This experimental work is carried out in metal samples of controlled disorder and also involves the use of an applied magnetic field. Modern electron-beam lithography techniques are employed in part of the work. This research program is interdisciplinary in nature and has typically involved several undergraduate and graduate students in its activities. These involvements are be neficial in the preparation of students for further study and for careers in industry, government laboratories or academia. ***